Laser Programmed Conducting Polymers: Applications to Advanced Microelectronic Packaging and Field Effect Transistors

9520536 Wilson The research combines high-resolution laser ablation with laser-induced electrical conductivity to address the problem of copper deposition on polyimide. There are significant advantages of a copper/polyimide inner-connect system arising from the polyimide low dielectric constant and the high electrical conductivity of copper; however, there are fundamental problems, such as the resolution and adhesion of copper to polyimide. If these problems can be addressed and solved, then improved performances and decreased cost will result in chip metalization, Multi-Chip Module (MCM) interconnects and printed circuit wiring boards (PCBs). The research addresses these issues and, in particular, offers a solution to the chip-interconnect problem. An innovative approach to the fabrication of MOS Transistors with the use of the above techniques to form a conductive gate electrode over a multi-insulator, polyimide gate dielectric layer. ***